Engineering Research Equipment: Phosphor Image Analyzer andSpectrofluorometer

9311021 Kellis This equipment is to be used for research programs in protein engineering, recombinant cell engineering, and bioremediation. Specific research topics include: studies on the mechanisms of protein folding, stabilization and translocation across membranes; production of novel enzyme catalysts; amplification and stabilization of cloned genes; and biodegradation of toxic compounds. ***